Development of Novel Techniques to Measure Surface and Interfacial Energies of Solids

A new technique to accurately measure interfacial energies between arbitrary materials systems will be studied. The technique relies on a soft structure (a bent elastica or a pressurized blister) for the measurements, instead of the commonly used soft material. Solutions for a bent elastica brought into contact with a rigid substrate will be modified to account for the perturbations which result from weak interfacial attractions. Experimental large-scale prototypes for the configurations well be constructed and tested to evaluate the techniques and validate the mathematical models. Small prototypes will be compared with values obtained from the Johnson-Kendall-Roberts (JKR) technique for some of the more limited materials systems for which this technique is applicable.